MRI: Acquisition of a GC/MS for Chemistry and Environmental Science Research at UT Chattanooga

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at the University of Tennessee in Chattanooga will acquire a gas chromatograph/mass spectrometer (GC/MS). This equipment will enhance research in a number of areas including a) study of reaction mixtures of organic products; b) the study of organomercury species found in local reservoirs and water supplies; and c) the study of the environmental fate of polycyclic aromatic hydrocarbons.

Gas chromatograph with mass spectrometric detection (GC-MS) detection is an extremely powerful technique used for the separation and analysis of complex mixtures. This instrument will substantially strengthen scientific research in the Environmental Sciences, Biology and Chemistry Departments at the University of Tennessee in Chattanooga. It will also have a significant impact on student involvement in research at this primarily undergraduate institution.